Researach Initiation Award: Elm Waves in Environmental Geotechnology: Fundamental Study and Applications

This research will explore the use of electromagnetic waves (ELM) for both the detection and remediation of groundwater contamination.